High-Performance Network Connection in Support of Meritorious Research at Montana State University

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in computational biology, physics and chemistry. Collaborating institutions include the University of California at San Diego, California Institute of Technology, Courant Institute, University of California at Davis, University of Tennessee, University of California at Santa Cruz and the University of Wisconsin.